RCN: ARIDnet for the Americas: A Research Network for Testing New Paradigms for Global Desertification

There is a great deal of disagreement about the causes and extent of desertification and about what part of
its impact on human well-being is manageable, and how. A new synthetic paradigm for
desertification must be developed, one that is based on the simultaneous roles of the meteorological and
ecological dimensions of desertification (the biophysical factors) and the human dimensions of
desertification (the socio-economic factors). This proposal will establish ARIDnet to provide the
intellectual leadership for developing and testing this new paradigm. Planned activities: ARIDnet will (i)
conduct workshops to debate the Dahlem Desertification Paradigm (DDP)a product of the 2001
Dahlem Conference on desertificationfor critical evaluation and refinement; (ii) formulate working
groups to develop comparative case studies to test the DDP; (iii) conduct a quantitative synthesis of what
matters in desertification, when and where it matters, and why; (iv) recruit new researchers and
stakeholders into ARIDnet so a broad-based and useful approach to desertification problems can be
developed; and (v) maintain a website to support networking activity. Anticipated impact: Arguments
surrounding the topic of desertification create confusion in policy and management programs intended to
help many of the worlds poorest people. Hence, there is an urgent need for new, interdisciplinary
approaches for addressing this global problem. ARIDnet will provide the leadership to support on-going
international discussions and strengthen recruitment of researchers, including undergraduate students, to
study the principles, criteria, and policies related to global desertification, especially as outlined under the
UN Convention to Combat Desertification.